Research in the Foundations of Quantum Mechanics

This proposal addresses three areas in the foundations of quantum mechanics. The first deals with coherence and interference in processes involving three or more particles, and builds upon previous examples for two particles. The second deals with aspects of non-locality for spatially separated particles. The third concerns the study of stochastic variants of dynamics in quantum mechanics. ***